Interactions between geometry and topology

Abstract

Award: DMS-0906483
Principal Investigator: Jean-Francois R. Lafont

The Principal Investigator (PI) proposes to work on a series of
projects that incorporate techniques from geometry and topology,
with a view to applications to both of these fields. A major
component of this proposal focuses on making use of geometric
arguments to shed light on the algebraic K-theory of (integral
group rings of ) various classes of groups. The PI's previous
work with Ortiz provided a complete algorithm to determind the
lower algebraic K-theory for lattices in the isometry group of
hyperbolic 3-space. The PI intends to further develop techniques
for computing the lower algebraic K-theory of various other
geometrically significant classes of groups. The importance of
such explicit computations is twofold. First of all, it provides
a testing ground for conjectures, and a possible source of new
conjectures. Secondly, because of the close relationship between
algebraic K-theory and high-dimensional topology, we expect our
computations to shed light on the topology of high-dimensional
manifolds. The PI is also interested in better understanding how
various metric properties constrain the topology of the
underlying space. There is a lot of freedom here, depending on
what one means by a metric property, and what aspect of the
topology we choose to study. For instance, one can consider how
Riemannian curvature influences the bounded cohomology of a
space. Or one can try to study how metric properties (e.g. the
G-space axioms) can influence the local topology of a
space. Alternatively, one can try to study, within a fixed class
of topological spaces (e.g. closed smooth manifolds), those
supporting various types of metric properties (e.g. Riemannian
metrics of non-positive curvature, as compared to locally CAT(0)
metrics). The PI intends to work on questions related to this
circle of ideas.

Geometry is the study of properties of spaces equipped with some
additional structure, usually of a metric nature (i.e. allowing
one to measure distances in the space). In the field of topology,
one forgets about the precise underlying distance, and only
retain the notion of points in the space being "close
together". As such, topology is often referred to as "rubber
geometry": one can stretch and deform spaces without changing
their underlying topology. In topology, manifolds are the spaces
of most interest. These are spaces which, on the small scale,
look like Euclidean space, but on the large scale, can be
curved. A basic question lies in finding ways to detect when two
manifolds are different from each other. This is usually done by
associating certain invariants to manifolds: if the invariants
are different, then the manifolds are different. One family of
invariants which is particularly useful in high-dimensional
topology are the algebraic K-theory invariants. In general, these
invariants are quite hard to compute. The PI plans to develop
methods for computing these invariants, in the special case where
the manifold has some nice underlying geometry. More generally,
the PI plans on studying how the presence of a geometric
structure constrains various topological properties (and vice
versa).